A Comparative Study of Social Structure, Social Inequality, and Class Consciousness in the United States and the Soviet Union

Political change in socialist countries and increasing global economic interdependence and competition is leading to a reassessment of authority, hierarchy and individual decision-making in capitalist and socialist countries alike. Within countries, constraints on individual and family social mobility, attitudes towards workplace issues, and gender-divided labor within dual-earner household economies are increasingly interwoven social facts, yet shaped by political and economic forces not confined to each country. In such a context, comparative sociological research on these topics, such as that indirectly supported with this grant, is a vital tool of national understanding and reassessment. This award will support the beginnings of a timely U.S. contribution of data to a multi-nation comparative survey by means of a pilot survey of households in the Oakland- San Francisco area. The final form of the survey instrument being tested here and later collected from a broader survey of American households will contain questions paralleling those in instruments administered in the USSR, Hungary, Taiwan, Spain and possibly China. The recipients of this award comprise a individually productive and influential team of sociologists whose skill in survey methods and data analysis, experience in cross-national survey and field work and international reputation from their past research and writing commands the respect of distinguished collaborators abroad.